CISE/EHR/ENG/MPS Collaborative Research on Learning Technologies: Visualization Research Center

9616410 Carraher, David TERC, Inc. CISE/EHR/ENG/MPS Collaborative Research on Learning Technologies: Visualization Research Center TERC, Inc. has been awarded $50,000 for a 6-month period to plan a research Center for the study of scientific and mathematical visualization. The goals of the center are: (1) to undertake interdisciplinary empirical research on the technological development and cognitive interpretation of visualization technologies; and , (2) to improve K-12 math and science education by creating innovative visual curricular tools and (3) to contribute toward a new conceptual framework on the role of visualization in learning and understanding mathematics and science. To promote a broad understanding of visualization as historically, culturally, and psychologically grounded, the Visualization Research Center will draw upon expertise not only from the natural and mathematical sciences but also from the humanities and social sciences. Partnerships are being established with the National Academy of Arts and Sciences, the Massachusetts Institute of Technology Media Lab, the CalSpace at University of California-San Diego, Pennsylvania State University, the Boston University Medical Center Hospital, and the Cranbrook Institute, among others.